Metabolic Organization in Neurospora

The goal of the proposed research is to characterize the structure, assembly and inter-relationships of the feedback sensitive enzymes of arginine biosynthesis in Neurospora crassa. The first seven biosynthetic enzymes, including the feedback-sensitive enzymes, acetylglutamate synthase and acetylglutamate kinase, are localized in the mitochondria. The structural and functional relationships between acetylglutamate synthase, acetylglutamate kinase and acetylglutamyl-phosphate reductase will be investigated to evaluate various models for coordination of feedback inhibition, enzyme synthesis and assembly. The leader sequences and sequences involved in processing the polyprotein precursor of acetylglutamate kinase and acetylglutamyl-phosphate reductase will be identified. A molecular analysis will be performed to investigate the biological role and evolutionary origin of this complex gene organization. The arg-14 gene will be cloned and sequenced to confirm (or confound) its identiy as a structural gene. Genetic and biochemical analyses will be performed to ascertain the role(s) of acetylglutamate kinase in synthesis, processing, assembly and functioning of acetylglutamate synthase. The specificity, kinetics, energetics, and regulation of metabolite trafficking and the possible relationships between mitochondrial, plasma and vacuolar membrane transport systems will be investigated. The components of the transport systems will be identified by conventional biochemical methods or by labelling with photolabile amino acid derivatives. Attempts will be made to isolate and characterize mutations affecting their function. The results will be of signifcance in understanding metabolic regulation and the assembly of mitochondria (and other organelles) in eukaryotic cells.